LIGO Visitors Program 2003-2006

This proposal provides funds for the LIGO Visitors Program at the Laser Interferometer Gravitational-Wave Observatory (LIGO). The LIGO Visitors Program supports visitors to the LIGO Laboratories, at all levels and ranks, who wish to become involved in the science and techniques associated with the detection of gravitational waves with interferometric techniques. Visitors contribute their accumulated skills and abilities to enhance the performance of the LIGO team.

The LIGO Laboratory Visitors Program is oriented towards activities at the LIGO Observatories at Hanford, WA, and Livingston, LA as well as at the Caltech or MIT LIGO Laboratories. The program has several parts: short term visits as short as one month; long term visits of six months or more; international exchanges between scientists and students from the VIRGO project in Europe, TAMA in Japan, ACIGA in Australia and LIGO; and a summer teachers program at the Hanford and Livingston Observatories.